Conference: "Signaling Systems, Venoms and Adhesives: Recurring Themes and Variations" held on October 13-16, 1991at Baltimore, MD.

A one-half day Symposium, entitled "Signaling Systems, Venoms and Adhesives: Recurring Themes and Variations", is proposed for the Second International Marine Biotechnology Conference (IMBC' 91), October 13-16, 1991. The proposed Symposium assembles scientists whose studies with marine organisms make major contributions to our understanding of: (1) receptor systems for exogenous chemostimulants, neurotransmitters and hormones, (2) substances inhibiting specific receptors, and (3) the biosynthesis of waterproof adhesives. These seemingaly disparate subjects are integrated by recurring themes apparent in receptor structure, mechanisms of transduction, and the synthesis and employment of similar molecules for diverse functions. The following topics will be discussed: receptor-mediated larval settlement, the recurrence of a defined receptor type on echinoderm spermatozoa and mammalian cells, the evolution of families of venoms blocking specific receptors and ion channels, the role of peptides, steroids and prostaglandins as both endogenous hormones and exogenous pheromones and the incorporation of the catechol moiety into both neurotransmitters and adhesives. The Symposium contents will be summarized and integrated by the organizers for publication in the Biological Bulletin.//